NSF Young Investigator

9358093 Gao This National Science Foundation Young Investigator Award is concerned with the development of a combined theoretical and experimental, multidisciplinary, research program on micromechanics of advanced materials systems. These include: (1) heteroepitaxial thin films in various microelectronic, magnetic and optical devices; (2) fracture mechanics of advanced composites; and (3) earthquake fault systems.